Collaborative Research: FIND - On the Economic Viability of Network Architectures

The Internet is a phenomenal success, but problems and weaknesses in
it have become apparent, and this has spurred a search for new
technologies and network architectures. Although technical innovation
will remain fundamental to the Internet's evolution, the importance of
this key infrastructure for society as a whole means that economic
aspects will be critical in determining what innovations are adopted.
This project, therefore, seeks to investigate -- both qualitatively
and quantitatively -- how economic factors mediate the eventual
success of new network architectures and technologies. Aspects of
interest include quantifying the benefits of virtualization in
enabling different levels of network integration; evaluating the
effect of a dominant incumbent (today's Internet) on emerging new
architectures; and devising models for quantifying the value of
architectural flexibility and openness in facilitating technology
adoption and service creation in the presence of market uncertainties.

The intellectual merit of the proposed research is in developing an
economic framework for reasoning about network technologies,
architecture alternatives and trade-offs. The goal is to inform the
design of new network architectures by accounting for both their
technical dimensions, and the economic mechanisms that will mediate
their success or failure. The broader impact of the project will be
in helping select network solutions that are likely to succeed in the
market place. The project will also foster a multi-disciplinary
curriculum involving economics, business and engineering perspectives.
This will both better prepare engineering students to succeed in a
world where understanding of economical forces is of paramount
importance, and promote interactions and collaboration among
engineering and business students.